TC: Small: Collaborative Research: Scalable Malware Analysis Using Lightweight Virtualization

As the web continues to play an increasing role in information
exchange, so too is it becoming the prevailing platform for infecting
vulnerable hosts. One commonly deployed strategy for delivering
web-malware involves the underhanded tactic of targeting browser
vulnerabilities to automatically download and run malicious software
upon visiting a website. When popular websites are exploited, the
victim base from these so-called drive-by downloads can be far greater
than other forms of exploitation because traditional defenses (e.g.,
firewalls) pose no barrier to infection. Unfortunately, with the
plethora of (insecure) web applications being deployed today, it is
likely that web servers will continue to be popular targets for
exploitation for the foreseeable future.

One of our primary goals is to take an in-depth look at the malware
serving network on the Web by building a scalable malware execution
and analysis infrastructure. Specifically, we plan to build a
resource-efficient host architecture that permits lightweight process
monitoring via tracking of interactions with the OS. An important
facet of our research direction is to explore a transactional
framework that unifies virtualization and logging to allow efficient
analysis. In this framework, the granularity of recorded transactions
is dynamically adjusted based on execution contexts, aggregating
multiple transactions to a single, summarized, transaction whenever
possible. Broader impats of this project will result from the
comprehensive analysis of the different aspects of the problem posed
by web-based malware, and the tools, methods, and analytical
techniques that will ultimately allow for large-scale malware analysis
by the security community at large.